CAREER: Mechanisms of Caloric-Restriction Induced Hypotension

PI: Steven J. Swoap - Williams College
IBN 9984170

This CAREER project will integrate the tools of molecular biology with the principles of adaptive physiology at a small liberal arts school where undergraduates will have the opportunity to work in a research laboratory. The restriction of caloric intake has been shown in numerous animal systems to lower blood pressure. Dr. Swoap and his students will use a telemetry-based blood pressure system to measure the blood pressure of animals with known germline mutations. These mutations will be in genes that are known to regulate body mass homeostasis. In addition, animals will be chronically instrumented with cannulas in the brain to analyze results from testing the role of leptin signaling pathways in blood pressure regulation. This research on blood pressure regulation during caloric restriction is well suited for undergraduate research projects. The combination of using physiological techniques on transgenic animals provides an opportunity for undergraduates to initiate a research project and start producing novel results and new fundamental information in a short time.